8th International Topical Meeting on Optics of Liquid Crystals, Humacao, Puerto Rico, September 27-October 1, 1999

9901427
Aliev
The 8th International Topical Meeting on Optics of Liquid Crystals will be held from September 27 - October 1, 1999 in Puerto Rico. The goal of the conference is to provide a forum for the exchange of scientific ideas and technolgoical advances in optics and other aspects of liquid crystals and related materials. The NSF funds will be used to support the attendance of young American Scientists.
%%%
Puerto Rico itself will greatly benefit by hosting such a high profile international meeting. Great potential for technological opportunities exist in the areas of information displays and optical communication that are based on materials that exhibit liquid crystalline behavior.